Supporting Undergraduate Participation at the International Conference on Infant Studies: 2016-2020

This grant will provide travel funds for undergraduates to attend the biennial meeting of the International Congress on Infant Studies in 2016, 2018, and 2020. Undergraduates who are presenting work at the conference and/or who are from underrepresented groups (including ethnic/racial minorities and first generation college students) will receive a subsidy to attend the meeting and will participate in professional socialization activities during the meeting. Promotion of undergraduate research experiences will help to cultivate the next generation of infancy researchers.

Funds will offset travel expenses for undergraduate attendees per meeting. Efforts to disseminate information about this opportunity will focus on developing a diverse applicant pool. In addition to learning about new research in infancy science, undergraduate attendees will be mentored at the meeting to ensure that they make the most of their conference experience. Supported students will participate in networking opportunities to learn about graduate school and post-college employment in research venues.